Center Evaluator for Texas A & M University Industry/ University Cooperative Research Center for Ergonomics

ABSTRACT
EEC-9818558
BLAKELY

This award provides funding for three years to Dr. Craig H. Blakely to serve as an Evaluator to the Industry/University Cooperative Research Center in Ergonomics at Texas A&M University.